Experimental Studies of Quark Interactions

This RUI award covers experimental Elementary Particle Physics research by a group at the University of Massachusetts Dartmouth in collaboration with other NSF and DOE supported scientists. The group will continue its participation in the EVA collaboration at Brookhaven National Laboratory. They will probe the experiment evidence for nuclear transparency, a prediction of the quantum chromodynamic theory of nuclear forces.